Renovation of the Nacote Creek Marine Field Station

Byrne: Richard Stockton College of New Jersey is one of only two 4-year undergraduate institutions located in Southern New Jersey. The institution is one of the few undergraduate institutions in the United States with a degree program in Marine Science, serving approximately 100 degree majors. To sustain this growth, the college plans to renovated and modernize the marine laboratory on Nactoe Creek, a part of the intercoastal lagoon system in southern New Jersey. Present conditions at the facility are inadequate and severely limit research activities. Space dedicated to research and research training is not properly partitioned and does not meet safety requirements. No seawater system exists and the greenhouse facility in its present state is unusable. The heating and cooling systems are antiquated and cannot support the level of use in the building. Funds have been requested to renovate 1,678 square feet (156.1 square meters) of research and research training space. In addition to modernizing space, renovations will include: the installation of fume hoods, casework, emergency eyewash showers and a seawater system. HVAC and fire protection systems will be upgraded and the greenhouse will be reglazed. Once completed, the renovated facilities will support research projects that cannot be conducted at the moment. Redesigned space will promote more collaborative activities with other institutions in proximity to the marine field station and will allow for more student involvement. Opportunities for students to engage in the research enterprise early in their undergraduate careers will increase the probability that the students will continue in their pursuit of marine science.